OARNET. Ohio Academic Resources Network

This proposal seeks to establish the Ohio Research Academic Resource Network (OARNET), an intrastate network connecting universities, colleges, and other research laboratories in the State of Ohio to the Ohio Supercomputer Center and to the NSFNET. A network management organization will provide technical support and policy oversight. Initially the principal use of the network is expected to be for supercomputer access, but other types of use will develop. General use involving electronic mail, exchange of research data, and interactive computing by academic and governmental instituions is expected to grow rapidly and to facilitate much more research collaboration. The NSF funding will supply seed money to purchase gateway equipment and provide partial funding of the network management group. The Ohio state government will provide much of the long distance line costs by using the State of Ohio Network for Integrated Communications (SONIC) as a means of connecting participating institutions to major hub site at Ohio State University.